Engineering Research Equipment Grant: Biosensor Laboratory

Commercially available dissolved oxygen probes for bioreactor applications have a number of undesirable characteristics such as calibration drift and flow sensitivity. By making use of the state- of-the-art integrated circuit fabrication technology, it is proposed to develop a steam-sterilizable dissolved oxygen probe, which does not exhibit these shortcomings. Also, microprobes with a sensing tip of a few-micron size are to be developed for monitoring local concentrations of various fermentation substrates and products within the immobilized cell layers. These proposed sensors are especially useful for monitoring bioprocesses involving shear-sensitive mammalian cell cultures and immobilized cells, which gained significant industrial importance in recent years. A successful application of the microcircuit fabrication technology to constructing dissolved oxygen probes is expected to open wide ranging possibilities in fabricating sensors for bioprocess monitoring in general. By integrating several sensors on a single chip, many parameters can be monitored simultaneously. By incorporating enzymes and monoclonal antibodies, sensor chips can be made for detecting various small and large molecules involved in downstream as well as upstream bioprocesses. The proposed microprobes for immobilized cell applications will enable measurements of layers. Such measurements, which have not been possible previously, are expected to help scientists and engineers greatly in studying the physiological behaviors of the immobilized cells. The knowledge obtained can then be applied to optimitzing bioreactor operations and designs. The proposed sensors are thus expected to contribute significantly in advancing biotechnology, an area of national prominence.